CAREER: Nanometer Scale Imaging and Sensing

This Faculty Early Career Development (CAREER) project, supported in the Analytical and Surface Chemistry Program, focuses on the development of new optical microscopy methods, based on near field optics, which allow the direct, in vivo imaging of biological processes on the cellular and sub-cellular scales. Professor Tan and his students at the University of Florida will develop a suite of analytical methods which hold the promise of monitoring biological events with nanometer-range spatial resolution. Optical sensors of this scale will be developed for representative mineral and enzymatic species, calcium ion and glutamate. This CAREER research project will expose students to the interdisciplinary aspects of biomedical sciences and chemical instrumentation. Professor Tan will be a key figure in the development of a joint bioanalytical chemistry program between the Department of Chemistry and the University of Florida Brain Institute. One of the long standing issues in the area of cellular biology has been the desire to observe chemical phenomena on the single-cell level. Professor Tan and his students at the University of Florida are developing imaging techniques based on near field optical methods which address this very important area of research. Instrumentation having sub-micrometer spatial resolution and microsecond time resolution would impact a number of disciplines. The multidisciplinary aspects of the instrumentation development portion of the project are complemented by Professor Tan's new `Bioanalytical Chemistry` course for graduates and advanced undergraduates and the establishment of a collaborative program with the University of Florida Brain Institute.